Dissertation Research: Controls on Carbon Cycling in Freshwater Pelagic Ecosystems: New Insights Using Natural Abundance Oxygen Isotopes

DDIG: Controls on carbon cycling in freshwater pelagic ecosystems: New insights using natural abundance oxygen isotopes

While our understanding of net ecosystem production (photosynthesis minus respiration) is robust, scientists have been unable to measure rates of photosynthesis and respiration directly. The investigators performing this research have developed a way to measure these rates more accurately. This research will employ a mesocosm experiment and a lake survey to examine rates of photosynthesis, respiration, and carbon cycling in lakes. In particular, the researchers will examine the relative importance of phosphorus enrichment, light availability, and dissolved organic carbon supply in regulating these rates. This research will improve our understanding of controls on the functioning of freshwater pelagic ecosystems as well as provide insight into the future management of these important resources.